ITR: Reliable Technologies for Operating Systems and Operating System Services

Despite decades of research in extensible operating system
technology, extensions such as device drivers remain
a significant cause of system failures. In Windows XP, for example,
drivers account for 85% of recently reported failures.

In this project, the researchers are developing a reliability subsystem
for commodity operating systems. Their approach is
to improve OS reliability by isolating the OS from driver
failures. Rather than guaranteeing
complete fault tolerance through a new (and incompatible) OS or
driver architecture, their goal is to prevent the vast majority of
driver-caused crashes with little or no change to existing
driver and system code. To achieve this, they isolate drivers within
lightweight protection domains inside the kernel address space.
Drivers run largely unchanged in kernel mode, but are prevented
from corrupting the kernel by both software and hardware means. The
system
also tracks a driver's use of kernel resources to hasten automatic
clean-up during recovery.

To prove the viability of their approach, they are implementing a system
called "Nooks" in the Linux operating system and are using it
to fault-isolate several device
drivers. Their initial results show that Nooks offers a substantial
increase
in the reliability of operating systems, catching and quickly
recovering from 99% of the faults that would otherwise crash the system.
While Nooks was designed for drivers, their techniques generalize to
other kernel extensions as well. The researchers are demonstrating
this by isolating a kernel-mode file system and an
in-kernel Internet service.

Overall, because Nooks supports existing C-language extensions, runs on
a
commodity operating system and commodity hardware, and enables
automated recovery, it represents a substantial step beyond the
specialized architectures and type-safe languages required by previous
efforts directed at safe extensibility.